Motive Representation Theory

A new type of integration, called motivic integration, has been proposed
by M. Konsevitch and developed by Denef and Loeser. They show that many
of the classical properties of p-adic integration can be extended to to
the motivic context. The research of this proposal will adapt motivic
integration to the representation theory and the harmonic analysis of
reductive groups over fields of formal Laurent series in characteristic
zero. This new theory will be developed from first principles, starting
with the existence of motivic Haar measures.

The starting point of much of modern mathematics is the theory of
integration, as developed by Isaac Newton, and generations of
mathematicians that have followed him. An unexpected development came in
1995, when the mathematician M. Kontsevich developed an entirely new way
to integrate. This new tool will allow mathematicians to significantly
enlarge the scope of mathematics. The research of this grant will
accomplish part of this project, by using this new tool to enlarge the
scope of representation theory, a branch of modern algebra.